Doctoral Dissertation Research in Sociology

This is an award under the Grants for Improving Doctoral Dissertation Research program. It is a study of citizen discourse concerning the 1990 Iraq War, based on transcripts of recorded radio and television talk programs. To examine the impact of elite discourse, primarily the words of political leaders, on citizen speech, this research project will analyze the narrative structure, to use of symbols and ideographs, and the characteristics of key figure. In addition, an institutional analysis will develop both an empirical and theoretical account of the radio talk call-in show and its relationship to American public life. This study will systematically examine an important new arena of social and political debate in the United States, to learn how powerfully the words of societal leaders shape the ways ordinary citizens express themselves and to chart the structure and function of this new cultural institution. In addition to the scientific gains to be achieved by the research, this award will materially assist a highly promising student in completing research for the Ph.D. dissertation. Thus it contributes to future scientific manpower and the thorough training of the next generation of sociologists.